A1-Homotopy Theory and Motives

Voevodsky
9901219
The proposer will continue to construct the homotopy theory of
algebraic varieties. As of today we know how to define the stable and
unstable homotopy categories for algebraic varieties and the
fundamental cohomology theories such as the ordinary (=motivic)
cohomology, K-theory and cobordisms. The analogs of other basic
ingredients of theordinary homotopy theory, such as the Steenrod
operations in ordinarycohomology, are also partly understood.
During this stage of the project the main attack will be made on
two other ingredients which are so far missing; these are the duality
theory and the recognition principle for T-loop spaces.

Homotopy theory of algebraic varieties is an approach to the study of
algebraic varieties (= systems of algebraic equations) based on an
analogy. This analogy exists between the abstract categorical
properties of the affine line (= the system of equations with one
variable and no equations) and the toplogical space [0,1] called the
unit interval. Using it one can translate methods of homotopy theory
from topological spaces to algebraic varieties which gives new tools
to deal with problems in algebraic geometry and number theory.